Multi-disciplinary Conference Investigating Tlingit Indigenous Place Names, Language and History

Insights into language are enriched through cross-disciplinary investigation. The Indigenous Place Names, Language, and History conference will bring together experts in biology, traditional ecological knowledge, archaeology, linguistics, museum studies, cultural anthropology, education, ethnohistory, art, music, and indigenous law to share information from many perspectives on Tlingit (tli) language and culture. In addition to social scientists and humanities experts, the conference will include equal participation and presentations from Tlingit speakers and other tradition bearers who hold keys to contextualize linguistic and cultural findings. Under the direction of Alice Taff of Tlingit Readers, Incorporated, this Clan conference will generate knowledge on place names from coastal Southeastern Alaska from Yakutat south to Ketchikan.

Conference proceedings and presentations will be archived at the SeaAlaska Heritage Institute, Alaska State Library, and clanconference.org websites. The session will be available for viewing at clanconference.org.